Handheld Diagnostics: Enhancing and Scaling Rigorous Observational Reading Assessments through Handheld Computing

This planning grant is a collaboration between the Education Development Center's for Children and Technology (CCT) and Wireless Generation, a technology development company. Together, the collaborators are building a suite of handheld diagnostic tools that make it possible for teachers to conduct observational assessments and collect the process data necessary to effect changes teaching and students' learning. The planning period will be used to conduct a thorough review of the literature, strengthen the research design, and focus on designing an assessment system. During the planning process, CCT will draw on an interdisciplinary team and a nationally recognized board of advisors to guide the work.
Staff Analysis
PI: Honey